Collaborative Research: The Drivers and Role of Immigration in the Dynamics of the Largest Population of Weddell Seals in Antarctica under Changing Conditions

Part 1: Non-technical description
This is a continuation of a long-term population dynamics study (1978-present) using an intensive mark-recapture tagging of Weddell seals in Erebus Bay, Antarctica. Past work has become a global model for population studies of large animals. Results have documented strong annual variation in reproduction, abundance, and population composition. This program will add components to evaluate the demographic role of immigrant mothers, evaluate possible drivers of annual variation in overall population dynamics, assess genetic differences between immigrant and locally born mothers, and document patterns of gene flow among seal colonies in the Ross Sea region. These new aspects will focus on understanding of population structure, function, and genetics and provide key information for predicting how the seal population will respond to environmental change. The addition of genetic approaches will advance available data for multiple groups in multiple countries working on Weddell Seals. This work includes an early career scientists training program for faculty university graduate and undergraduate students and well as a defined program for data sharing. The research is paired with active education and outreach programs, social media, websites, educational resources, videos and high-profile public lecture activities. The informal science education program will expand on the project’s successful efforts at producing and delivering short-form videos that have been viewed over 1.6 million times to date. In addition, the education program will add new topics such as learning about seals using genomics and how seals respond to a changing world to a multimedia-enhanced electronic book about the project’s long-term research on Weddell seals, which will be freely available to the public early in the project.

Part 2: Technical description
Reliable predictions are needed for how populations of wild species, especially those at high latitudes, will respond to future environmental conditions. This study will use a strategic extension of the long-term demographic research program that has been conducted annually on the Erebus Bay population of Weddell seals since 1978 to help meet that need. Recent analyses of the study population indicate strong annual variation in reproduction, abundance, and population composition. The number of new immigrant mothers that join the population each year has recently grown such that most new mothers are now immigrants. Despite the growing number of immigrants, the demographic importance and geographic origins of immigrants are unknown. The research will (1) add new information on drivers of annual variation in immigrant numbers, (2) compare and combine information on the vital rates and demographic role of immigrant females and their offspring with that of locally born females, and (3) add genomic analyses that will quantify levels of genetic variation in and gene flow among the study population and other populations in the Ross Sea. The project will continue the long-term monitoring of the population at Erebus Bay and characterize population dynamics and the role of immigration using a combination of mark-recapture analyses, stochastic population modeling, and genomic analyses. The study will continue to provide detailed data on individual seals to other science teams, educate and mentor individuals in the next generation of ecologists, introduce two early-career, female scientists to Antarctic research, and add genomics approaches to the long-term population study of Erebus Bay Weddell seals. The research will be complemented with a robust program of training and an informal science education program.